Graduate Student-University-School Collaborative for Science, Mathematics, Engineering and Technology

The NDSU Graduate Student-University-School (GraSUS) Collaborative for Science, Mathematics, Engineering and Technology is a project in which graduate and advanced undergraduate students (fellows)will work with science and mathematics teachers in grade 6-12 classrooms. The project uses problem-or inquiry-based learning, in which solutions of interesting real -life problems promote students' learning, problem-solving skills, creative thinking, and teamwork. Challenging problems will be selected to reflect existing school curriculum in the context of the research and applications from core SMET disciplines at the university. The school courses involved include mathematics, general science, environmental science, chemistry, physics and biology. Real-life applications in these areas will come from the same disciplines and from several engineering, agricultural, and technology disciplines. The graduate and undergraduate
fellows will receive pedagogical training. Summer workshops will involve school teachers and university faculty in planning and development activities with the fellows. The project's expected outcomes include enhanced communication and teaching skills for the fellows, enriched learning by K- 12 students,
professional development opportunities for K- 12 teachers, and stronger partnerships between NDSU and local school districts. This project will build upon several other similar and successful programs at NDSU.